DISSERTATION RESEARCH: Parasite Host-Specialization in an Ancient Fungal Symbiosis

This study uses fungus-growing ant species to address host specialization by a virulent pathogen of the ants' fungus gardens. Molecular analyses of host-parasite phylogenetic relationships will be combined with analyses of population differences to determine if parasites specialize on particular host fungal species. Subsequent experiments will be initiated to determine the consequences of host specialization, and analyses of the chemical mechanisms underlying resistance will explain how specialization is maintained. The project will show how mechanisms of resistance and infectivity shape parasite-host specialization and the dynamics of these interacting populations. The research includes collaboration with scientists at domestic and foreign institutions and deposition of collections at museums in Latin America. Undergraduate students will be trained in molecular and experimental techniques.